Scanning Tunneling Microscope for Undergraduate Experiment and Demonstrations

9351910 Rogers We have acquired a scanning tunneling microscope (STM) for use by undergraduates in supervised laboratory course work, in classroom demonstrations and for scheduled use in undergraduate independent research projects. The STM offers new and dramatically better ways to introduce students to the physics of materials and to the basic quantum mechanical nature of our world. However, because the STM technique is quite new, its use in physics and chemistry courses is extremely rare. We are harnessing the instructional potential of STM by integrating it into our undergraduate curriculum. We are initially implementing this plan in three specific ways. First, we introduce a set of quantitative STM experiments for use in our senior level experimental laboratory course. We are designing a laboratory section in which the students explore quantum mechanical tunneling and learn how it can be used to study the properties of materials. Second, we are developing two classroom demonstrations which use the STM to illustrate the atomic structure of surfaces and molecules respectively. Third, we are tapping the potential of STM for high quality hands-on research experience for undergraduates by scheduling the use of the STM for undergraduate independent research projects. We believe that it is important to bring modern research results into the classroom as soon as it is practical to do so. We are integrating the new field of molecular imaging and manipulation into our curriculum to give students a more concrete understanding both of our physical world and the fundamental principles underlying modern technology. ***